Differential Geometry and Partial Differential Equations

Abstract

Award: DMS-9971927
Principal Investigator: Ailana Fraser

This research proposal deals with applications of analytic
methods of minimal surface theory to geometric and topological
problems. More precisely, in the first part of the proposal,
motivated by the prominent role of the second variation theory
for geodesics in classical Riemannian geometry together with
modern minimal surface techniques, the investigator proposes
methods for understanding the second variation theory for the
free boundary problem for minimal disks together with its
geometric implications. In the second part, the investigator
proposes projects applying minimal surface theory to study the
topological structure of manifolds with positive isotropic
curvature.

This proposal deals with certain two dimensional variational
problems which arise from a geometric setting. For example, the
first part deals with the problem of extremizing the area for
mappings from the disk into a manifold subject to a boundary
constraint. In case the manifold is the three dimensional
Euclidean space, we are constructing mathematical ``soap films''
meeting a constraint surface orthogonally. Free boundary problems
arise naturally in material science, for example in fluid
interface problems, and in elasticity problems. Objects which are
critical points for a geometric variational problem can
frequently be shown to satisfy very special properties. The basic
goal is to use such information to derive properties of the
general geometric class under consideration. The results of this
project are aimed at advancing our understanding of fundamental
relationships between the curvature and topology of manifolds